Verification of Properties of Geometric Structures and Reconstruction of Geometric Objectsfrom Partial Information

DMS-0310589
Karen Daniels, Daniel Klain, Koonstantin Rybnikov

This is a CARGO incubation award made under solicitation
http://www.nsf.gov/pubs/2002/nsf02155/nsf02155.htm.
The investigators will develop new techniques and algorithms for solving a
collection of problems that address the verification and reconstruction of
geometric objects from partial information. The approach is to have two
stages: first, verify if the partial information is consistent with the
desired outcome. Second, if the answer is positive, reconstruct the object.
If the answer is negative, find an approximation to the desired reconstruction.
The group will focus on four major types of problems. The first type is a
general class of NP-hard containment, covering and packing problems. Although
complete information about the objects may be available, partial information
will be used due to the hardness of the problems. In addition to
strengthening existing algorithms for polygonal shapes, this work will
design the first containment and covering algorithms using objects
bounded by spline curves. For the other three problems only partial
information about the objects is available. The second problem is
the verification of convexity and reconstruction of convex polyhedra
and convex smooth shapes from partial data. Reconstruction of
convex polytopes from partial data is a fascinating classical problem
going back to Maxwell, Steinitz, and Minkowski. While much work has
been done on recognition and reconstruction of convex polyhedra
from projections, reconstruction of smooth convex shapes with a
given discrete set of parameters is a problem that has not been
adequately addressed. Our work will emphasize reconstruction of
convex smooth bodies using splines. The third problem is that
of statistical determination of topological properties of a body,
such as the Euler characteristic, from a finite set of sample points.
The fourth problem, tightly related to the third one, is the determination
of the topology of a non-convex body from its projections on a
finite number of planes. Dissection and subsequent use of valuations,
i.e. finitely additive probability measures, will play an especially
important role in the third and fourth problems. The team of mathematics
and computer science investigators will combine computational geometry
techniques, mathematical programming approaches, methods of graph theory
and discrete geometry, methods of convexity theory, and work on
multivariate splines to design verification and reconstruction algorithms.

In addition to their significance in the context of pure mathematics and
theoretical computer science, these problems are important to applications
of computational geometry and geometric software design. For example,
verification of metric and topological properties of geometric software
outputs is important for implementing and testing geometric algorithms.
Containment algorithms are useful in 2D packing and layout for manufacturing.
Containment for 3D shapes is applicable to modeling tasks such as molecular
docking and to medical treatment planning. Covering problems arise in practical
settings such as military sensor coverage and targeting, telecommunications,
spatial query optimization, and graphics. Work involving splines is applicable
to CAD and design of numerical methods. Determination of the topology of a
body from finite samplings, projections, and sections is a hard problem
important for computer tomography and pattern recognition.